SBIR Phase I: High Fidelity Climate Simulation Powered by Generative Adversarial Networks

The broader/commercial impact of this Small Business Innovation Research (SBIR) Phase I project is the creation of a broad (1,000 outcome), hyperlocal (less than 3 km) climate simulation archive that can be used by power grid planners and energy industry investors to better understand forward-looking risks to grid reliability and renewable energy asset viability. This simulation data will be pre-computed for all locations within the Electronic Reliability Council of Texas (ERCOT) power grid, enabling planners and investors to quickly model the probabilistic impact of different renewable energy capacity pathways and different electrification trends. Ultimately, this data will support a more reliable grid and faster energy transition because decision-makers will have access to a single source of future weather data that incorporates extreme events, natural variability, and climate change.

This Small Business Innovation Research (SBIR) Phase I project proposes the creation of a climate simulation engine that generates synthetic hourly local weather patterns for many locations and many weather variables (all that are needed to model energy resources such as utility demand, wind generation, and solar generation). The project will not rely on physics-based global climate models due to the computational intensity of those models and the need to model local rather than regional or global weather. Instead, this project will research an innovative combination of statistical simulation with artificial intelligence (AI), leveraging the strengths of each to compensate for the weaknesses of the other. For example, statistical simulation models are precise but do not scale, while AI simulation models can scale almost without limit but are not precise. The project research will investigate a new method to impose precision (via known statistics) on AI pattern generation, yielding a high-fidelity climate model at scale. The expected technical result of the project is the creation of a simulation engine that can simulate 1,000 outcomes of hyperlocal hourly weather over the state of Texas--with accuracy similar to a pure-statistics model benchmark while keeping the cost of cloud computing resources low.